IGERT: A Graduate Traineeship in Nanoscale Control of Surfaces and Interfaces

This Integrative Graduate Education and Research Traineeship (IGERT) award supports a graduate training program at Cornell University in a highly interdisciplinary area of materials research that is central to advances in many areas of science and technology - the nanoscale control of surfaces and interfaces. This program provides doctoral students drawn from seven academic disciplines with hands-on, interdisciplinary training in the experimental and theoretical techniques necessary for forefront research at the nanoscale. The program is based on a dynamic, student-centric educational framework that transitions students from the coursework-based educational model typical of K-16 education to the self-directed learning necessary for professional R&D environments. As an integral part of their training, students perform interdisciplinary research on topics as diverse as the production of single molecule transistors, the design of non-volatile memory, the development of "plastic" electronics, and the fabrication of ultrasensitive chemical and biological sensors.
This program addresses the national workforce needs in materials research documented by a recent National Academies study. The study identified the field of nanomaterials - the focus of this traineeship - as the area of most rapid growth globally. By educating a new generation of nanomaterials researchers and performing fundamental research in this rapidly growing area, this program increases U.S. competitiveness. The program also addresses the underrepresentation of women and minorities in the field of materials through direct partnerships with two Historically Black Colleges/Universities, a substantial recruiting program and an extensive undergraduate research program. IGERT is an NSF-wide program intended to meet the challenges of educating U.S. Ph.D. scientists and engineers with the interdisciplinary background, deep knowledge in a chosen discipline, and the technical, professional, and personal skills needed for the career demands of the future. The program is intended to catalyze a cultural change in graduate education by establishing innovative new models for graduate education and training in a fertile environment for collaborative research that transcends traditional disciplinary boundaries.